Presidential Young Investigator Award

The proposed research is directed toward a structural analysis of the protein-protein interactions underlying gene regulation in prokaryotes. Genetic and biochemical approaches will be employed to examine (i) the mechanism of transcriptional activation by phage lambda repressor and the E. coli CAP protein and (ii) the nature of interactions between regulator bound some distance from one another along the DNA.